Melanophore Response to Light and Melatonin

9319344 Rollag Exposure of cultured Xenopus tailfin melanophores to light causes intracellular pigment granules to migrate from a homogeneous cytoplasmic distribution to a perinuclear aggregate. This direct photic response, which is independent of the visual system, provides a convenient model system for study of the mechanisms by which light directly modifies cellular function. The proposed research will identify molecular components of the phototransduction pathway in cultured melanophores, compare the molecular cascades elicited by light and melatonin (a hormone which causes similar morphological changes), and define experimental paradigms that induce the photosensitive phenotype. Immunocytochemical, molecular biological, radioimmunochemical, and videomicroscopic techniques will be employed. It is expected that this research will 1) provide an important precedent for understanding the molecular mechanisms underlying extra-retinal photoreception in vertebrate cells (a biological response that is not only used during camouflage, but also for regulation of seasonal reproductive phenomena in a variety of vertebrate species), 2) expand upon the use of the amphibian melanophore as a model system for study of the molecular mechanism of both melatonin and light signal transduction, and 3) provide a method for reliably inducing the photosensitive phenotype in nonphotosensitive melanophores (a necessary preliminary to studies that seek to determine the chemical identity of photosensitizing inductive factors and their mechanisms of action). ***